Student Travel Support for the 2005 Internet Measurement Conference

The proposal will fund travel grants for students to attend the 2005 Internet Measurement Conference. Participation in the conference will help the students a great deal in their research.